Planning Grant For Middle Schools In Delaware

9353232 Hall This planning grant will aid Delaware in writing a teacher enhancement proposal to address their middle school science needs. A process has been described that includes Delaware's SSI project; outside consultants, and Middle school teachers in defining the needs and direction for middle school science. Specifically, meetings will be held, survey tools will be developed to evaluate the current status of science in middle schools, and teachers will hold community meetings to explain the need for science education reform and obtain input on the proposed direction for middle school science. The planning grant will involve at least 30 middle school science teachers. The project duration is 12 months beginning June 1993 and ending June 1994. There is no cost share for this project.